Computer Enhancement Options for Second Year Calculus

Specialized software packages are being developed for the differential equations and vector and multivariable calculus topics typically in a second-year calculus course. The new software is modeled after the MacMath and Analyzer packages already completed and will be classroom tested.